MARGINS Workshop: Subduction Factory Research in the Izu-Bonin-Mariana (IBM) Arc, to be held in Honolulu, Hawaii in September 2002

Funds are provided for a workshop to bring together the leading researchers and students on the Isu-Bonin-Marians arc system under the Subduction Factory Initiative of the MARGINS Program. The purpsose of the workshop is to coordinate international activities, discuss current and planned research, and present previous results. It will serve as a forum to discuss the remaining gaps in the IBM research and where the resources need to be forcused for a complete coverage and a successful experiment at this "focus site" of MARGINS. The workshop will be held in Hawaii to allow easier participation by Japanese scientists who are important collaborators in the IBM and other experiments in the region.